CAO Special Project - Mathematics/Science/Technology Initiative

Program Summary: The District of Columbia Public Schools will mount a comprehensive five-year initiative for systemic reform of mathematics, science, and technology education in partnership with key scientific institutions of the nation's capital. This initiative will create the curricular and technological infrastructure to carry the school system into the twenty-first century. The effort focuses on improved instruction based upon a new curriculum, improved methods of content presentation, and enhanced opportunities for both students and teachers and improved school system functioning through improved accountability systems, restructured staffing patterns and shared decision-making and governance structures at the local school. The District of Columbia Public Schools requests $18,208,995 from the National Science Foundation to mount this five-year initiative. Program Highlights: After establishing baseline data on the current condition of mathematics and science education in the school district, DCPS will: o Develop Mathematics/Science/Technology Curriculum Framework; o Select Mathematics/Science/Technology Fellows to provide instructional leadership; o Establish Instructional Support Teams to provide on site staff development and classroom assistance; o Train all teachers (K-8) in content and pedagogy in three cycles to implement the National Council of Teachers of Mathematics Standards and the emerging science standards; o Upgrade classroom learning environments; o Strengthen and expand partnerships with community-based scientific institutions; o Provide internship/mentorship experiences for teachers in the scientific community; and o Create two state-of-the-art Mathematics/Science/Technology Resource Centers. The Mathematics/Science/Technology Initiative will have a significant impact upon 58,297 students and 2,872 teachers in grades K-8. Expected program outcomes include significantly increased levels of student achievement in the target disciplines; the creation of a community-wide infrastructure to support the learning and teaching of mathematics, science, and technology; and a broadened pipeline giving all children an opportunity to pursue advanced study in these fields.